Quantum Coherence in Superconducting and Normal Systems

This is for research in theoretical condensed matter physics, encompassing the quantum mechanics of dissipative systems, topics in the theory of high temperature superconductivity, studies of the proximity-induced Josephson effect, and studies of resistance variations in mesoscopic conductors.